College of Lake County NSF Engineering and Computer Science Scholars Program

The College of Lake County NSF Engineering and Computer Science Scholars Program is awarding scholarships to full-time engineering, computer science, and pre-engineering students who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from under-represented groups including women, minority students, and the disabled. Scholars are being organized into cohorts, which are being supported by activities such as individualized advisement, structured tutorials, mentoring, and a summer orientation.